A Polarographic Analyzer System for Undergraduate Laboratories and Student Research

A Polarographic analyzer system is being used by the Chemistry Department at Washington College to provide students with extensive "hands on" experience using modern voltammetric methods in analytical chemistry courses. This instrumentation is also being used in student research projects, one of which is concerned with the effects on marine species of increased zinc and aluminum concentrations in the Chesepeake Bay. A forensic chemistry course offered each spring to advanced high school students also utilizes polarographic methods.